Research Experience for Undergraduates in Molecular Biosciences

{\rtf1\ansi\ansicpg1252\uc1 \deff0\deflang1033\deflangfe1033{\fonttbl{\f0\froman\fcharset0\fprq2{\*\panose 02020603050405020304}Times New Roman;}{\f1\fswiss\fcharset0\fprq2{\*\panose 020b0604020202020204}Arial;}}{\colortbl;\red0\green0\blue0; \red0\green0\blue255;\red0\green255\blue255;\red0\green255\blue0;\red255\green0\blue255;\red255\green0\blue0;\red255\green255\blue0;\red255\green255\blue255;\red0\green0\blue128;\red0\green128\blue128;\red0\green128\blue0;\red128\green0\blue128; \red128\green0\blue0;\red128\green128\blue0;\red128\green128\blue128;\red192\green192\blue192;}{\stylesheet{\widctlpar\adjustright \fs20\cgrid \snext0 Normal;}{\*\cs10 \additive Default Paragraph Font;}}{\info{\author Central LAN Management} {\operator Central LAN Management}{\creatim\yr1998\mo1\dy16\hr14\min12}{\revtim\yr1998\mo5\dy8\hr12\min1}{\version3}{\edmins8}{\nofpages1}{\nofwords118}{\nofchars677}{\*\company National Science Foundation}{\nofcharsws0}{\vern89}} \margl2016\margr1440\margt2304\margb2880 \widowctrl\ftnbj\aenddoc\hyphcaps0\viewkind1\viewscale100 \fet0\sectd \sbknone\linex0\sectdefaultcl {\*\pnseclvl1\pnucrm\pnstart1\pnindent720\pnhang{\pntxta .}}{\*\pnseclvl2\pnucltr\pnstart1\pnindent720\pnhang {\pntxta .}}{\*\pnseclvl3\pndec\pnstart1\pnindent720\pnhang{\pntxta .}}{\*\pnseclvl4\pnlcltr\pnstart1\pnindent720\pnhang{\pntxta )}}{\*\pnseclvl5\pndec\pnstart1\pnindent720\pnhang{\pntxtb (}{\pntxta )}}{\*\pnseclvl6\pnlcltr\pnstart1\pnindent720\pnhang {\pntxtb (}{\pntxta )}}{\*\pnseclvl7\pnlcrm\pnstart1\pnindent720\pnhang{\pntxtb (}{\pntxta )}}{\*\pnseclvl8\pnlcltr\pnstart1\pnindent720\pnhang{\pntxtb (}{\pntxta )}}{\*\pnseclvl9\pnlcrm\pnstart1\pnindent720\pnhang{\pntxtb (}{\pntxta )}}\pard\plain \nowidctlpar\adjustright \fs20\cgrid {\fs24\cgrid0 \par }{\f1\fs22\cgrid0 \par 9731016 \par \par This project will support undergraduates involved in research projects in molecular biosciences. Each year 15 students will participate in a twelve-week summer experience. A significant number of the par ticipants will be women }{\i\f1\fs22\cgrid0 and/or }{\f1\fs22\cgrid0 minority s tudents. University of Arizona students will have the option of working year round in the laboratory. Students selected will interview prospective faculty sponsors and select a lab. Students will participate in lab meetings, seminars and field trips. An orientation will cover laboratory and radiation safety training, animal care and use, and research ethics. A monthly newsletter, featuring articles contributed by students, is distributed to all participants, program alumni and faculty. An annual on-site conference students present their experimental results as a poster. \par \sect }\sectd \sbknone\linex0\sectdefaultcl \pard\plain \nowidctlpar\adjustright \fs20\cgrid {\f1\fs22\cgrid0 \par }}